Collaborative Research: Resistance, Repair and Redundancy: Traits that protect shrubs against drought-induced hydraulic failure

In engineering terms, the hydraulic system of a woody plant is a "negative pressure flow
system" in which conducting cells in the wood (xylem) are linked from roots to leaves.
This type of hydraulic system is prone to failure due to the introduction of air bubbles,
which create embolisms. Plants frequently develop embolisms in their hydraulic
systems, especially under water limited conditions.
Whether man-made or natural, a pressure flow system can be protected from
failure in three ways: resistance, reparability, and redundancy. Resistance to hydraulic
failure in plants is fairly well understood and involves the thickness of cells walls in
conducting cells and in the surrounding matrix of thick-walled cells (fibers). Reparability
after failure depends on living cells in and adjacent to xylem. Redundancy reflects the
number of root to leaf conducing pathways and the degree of their interconnectedness
(hydraulic integration). The unique arrangements of conducting cells, supporting fibers,
and living cells in different species suggest that tradeoffs occur among these three
types of protections. To date, interactions among them are virtually unknown.
The proposed research questions whether the relative amounts of different types
of protection change with increasing habitat aridity in dominant shrub species from
multiple lineages along transcontinental aridity gradients in North America, South
America, and Australia. Methods will involve standard techniques used to study the
structure of plant xylem and the use of dye tracers to characterize three-dimensional
pathways of water transport. Xylem function studies will quantify resistance to
embolisms and reparability of experimentally induced embolisms. This study will be the
first to simultaneously examine the relative roles of redundancy, resistance and repair in
protecting plants from hydraulic failure.
Results from this study will aid researchers and land managers in understanding
how hydraulic protection influences shrub survival during global climate change and
desertification. Students of different ages, ethnic, and cultural backgrounds will
experience the scientific process as they participate in every aspect of the research.